Hierarchical-Multiobjective-Dynamic Analysis for the Maintenance of Water and Wastewater Treatment Plants

The Nation's physical plant is deteriorating at a rapid rate as the result of many operational and maintenance factors. One of the prime facilities and of utmost importance to the country is the management of water and wastewater treatment plants. This project will develop effective operational management methodologies and procedures for large-scale public facilities. The results of this research will be very helpful to the manager of large facilities.